U.S.-Brazil Planning Visit to Discuss Collaboration on Systematics of Euphorbiaceae

9424517 Webster This U.S.-Brazil Program award will fund a planning visit by Dr. Grady L. Webster of the University of California, Davis to discuss collaboration on systematics of Euphorbiaceae with botanists in Brazil. Dr. Webster is linking this visit to the XLVI Congresso Nacional de Botanica in Riberao Preto, Sao Paulo, Brazil. He will stay on to meet with colleagues at Instituto Botanico in Sao Paulo and at Museu Municipal in Curitiba. An informal conference will be held to discuss collaboration in preparing a systematic treatment of the Euphorbiaceae of Brasil, as a possible precursor to a new Flora Brasiliensis that will include all vascular plant families. The 60 genera with c. 900 species of Brasilian Euphorbiaceae include species of biogegraphic and evolutionary interest, and the wild forms of important economic plants such as Hevea (rubber) and Manihot (cassava). ***